Interactive Tutorial for Engineering Mathematics with Applications in Electrical and Computer Engineering

This project develops and tests tutorial software which demonstrates basic topics of engineering mathematics necessary for entry level engineering courses. It also provides demonstrations of typical engineering applications. This tutorial software will help students understand and use these mathematical concepts in their engineering courses. The software will be developed for terminals or workstations using X Windows and should be easily portable to many universities. The software will be designed for low overhead use with no knowledge of programming languages, operating systems, or database structures required of the user. The first electrical circuits course will be used to evaluate the effectiveness of the tutorial software and results of the evaluation will be used to improve the design and content of the system. The feasibility of using stored video recordings of real experiments for use with computer generated visualizations will be explored. The structure of the tutorial software will be documented so that others can add modules to the system. Distribution of the software will be handled by the Office of Continuing Education at Santa Clara University and through Sun Microsystems' Catalyst Education Program.